Presidential Young Investigator Award: Theoretical Particle Physics

Research in theoretical physics, to be carried out by one of the new Presidential Young Investigators for 1991, will focus on the numerical computation of physical quantities using an approximation which replaces the continuum of space- time by a discrete lattice of points. One of the quantities to be calculated in this computer-intensive approach is the "B parameter," which describes the probability for a K particle to turn into its antiparticle. To date, studies of the K particle are our only source of information on the asymmetry between matter and antimatter, and the interpretation of these studies depends critically on a knowledge of the B parameter.